Development of a Quantum Physics Laboratory

This award is made as part of the Instrumentation and Laboratory Improvement Program. This Program funds innovative new projects for undergraduate physics laboratories. The project supported here will develop a laboratory course to study some of the most fundamental aspects of physics theory.